Non-Perturbative Quantum Gravity (Physics)

This work will further develope the "loop representation" approach to quantum gravity. It will explore the possibility of quantizing general relativity without relying on a flat space-time perturbation expansion.